Mathematical Sciences: Rigidity Phenomena in Differential Geometry and Dynamical Systems

Ralf Spatzier continues to investigate rigidity properties of Riemannian manifolds and group actions. In particular, he proposes to study hyperbolic actions of higher rank abelian groups, actions of semisimple groups, higher rank Riemannian manifolds, geodesic flows and manifolds of negative curvature.